Intelligent Content Based Access to Networked Video Databases

The objective of this research is to design novel data models for video databases that will provide enhanced semantic expressiveness needed for content-based retrieval of video data. The key features of such models will be to allow retrieval of video data using arbitrary combination of keywords and video events involving object motion. Such a hybrid approach can substantially enhance the degree of precision and scalability of retrieval mechanisms for video data. This research effort is expected to have a significant impact on the development of database tools for content-based indexing and retrieval of video data. Results of this project are anticipated to have widespread applications including those in surveillance, education, digital libraries, law-enforcement, tele-medicine, news and entertainment, and manufacturing.